Student Support for GEC 2006

This award provides support for student travel to and participation in the 2006 Gaseous Electronics Conference. The conference is being held at the Ohio State University, in Columbus, OH from 10-13 October, 2006. Support is limited to students enrolled in a Ph.D program in the United States, and all students who receive support are required to present a paper at the conference.